I/UCRC for an Cooperative Partnership Initiative between CAPPS and the Institut Pertanian Bogor

Continuous aseptic processing and packaging is the most revolutionary development food processing has seen in the last fifty years. This technology is rapidly replacing other standard practices which have been commonplace. European companies appear to be incorporating aseptic processing more rapidly then in the United States. U.S. companies now recognize the need for research to maintain competitiveness. As a result of an NSF planning grant (CDR 86-13062) an Industry/University Cooperative Research Center for Aseptic Processing and Packaging Studies appears to be feasible and viable. This five-year continuing grant is funding the initiation of an Industry/University Cooperative Research Center for Aseptic Processing and Packaging Studies at North Carolina State University in collaboration with researchers from Virginia Polytechnic Institute and State University. The initial research program will address Surface Characteristics and Interactions; Product Properties; and Non-traditional Processing. Nine companies are expected to be members of the Center providing about 75% of the approximately $400,000 per year initial research budget. The Principal Investigator and his colleagues are nationally recognized experts in their disciplines and have the experience and industrial contacts necessary to operate this Center. The Center has been coordinated with Drs. Duane Bruley (CBT) and Frederick Heineken (EET). The Program Manager recommends that the North Carolina State University be awarded a five-year continuing grant to be funded as follows: $75,000 for the first three years, $50,000 for fourth year and $25,000 for fifth year. An additional $5,000 is recommended for the "Supplemental Funding for Support of Women, Minority, and Handicapped Engineering Research Assistants" Program during the first year. Near the end of each 12-month period, the Program Manager and/or the Head of The Division of Cross-Disciplinary Research will review the progress of the Center on a number of renewal criteria, including the following: (1) extent to which university/industry interaction and collaboration is developing; (2) extent to which the support base for the center is expanding; (3) extent to which a robust research program is developing. If review is satisfactory, the Program Manager will recommend support of the next period of this continuing grant.